POSE: Phase II: Advocate Led Long-term Gameplan for Open OnDemand (ALL GOOD)

This project aims to build an open-source ecosystem around Open OnDemand, an NSF-funded web portal used by nearly 500 research computing centers around the globe to provide easy access to high performance computing (HPC) resources from anywhere and from any device. The project’s novelties are a central model to support and strengthen the open-source online gateway, as well as a development plan to grow the user community, partnerships and sponsorships. The project’s impacts are expanding access to research computing resources and bolstering the pipeline of researchers using HPC for innovation.

The project develops a managing organization that (1) builds a community of Open OnDemand developers, contributors and clients to facilitates the long-term sustainability of this critical platform for research computing infrastructure; (2) implements security and quality assurance processes and infrastructure that are specific to the needs of Open OnDemand; and (3) conduct market discovery research, in conjunction with an external consultant, to produce collateral to facilitate community growth and long term sustainability. Broader impacts of the project include the increased adoption of research computing resources across science domains and other research communities, improved collaboration between the public and private computing sectors and early engagement of students who will be future research computing clients.